Molecular Features of the Colchicine Binding Site on Tubulin

The goal of this Research Planning Grant is to perform preliminary studies directed towards identification of the colchicine binding site on tubulin. The specific objectives are to 1) synthesize several novel affinity and photolabeling derivative of colchicine in which the labile groups are positioned at points on the molecule predicted to be within or very close to the interior of the colchicine binding site on tublin, 2) assess the affinity of these ligands for the colchicine site on tubulin through appropriate competition binding experiments and 3) determine whether covalent bond formation between the derivative and tubulin results after photolysis of its ligand-tubulin complex.